Continuous Complexity and Dynamics

Abstract :

The Principal Investigator is Michael Shub. Shub and co-workers
Pugh, Wilkinson and others have established the stable ergodicity of a
wide range of partially hyperbolic dynamical systems which preserve a
smooth volume element, thus establishing the statistical robustness of
these chaotic systems. The thrust of the work proposed is to extend
these results to include almost all partially hyperbolic systems and to
eliminate the hypothesis of volume preservation. This is an ambitious goal,
but the results obtained included the development of new tools, namely
julienne quasi-conformality and julienne density point preservation of the
stable holonomy maps, whose power has not been fully explored.
A second theme is a study of the complexity of continuous problems centered around the
analysis and application of variants of Newton's method.

Chaotic dynamical systems are pervasive in scientific, engineering and
numerical simulation applications. The proposed work would lay foundations
for the statistical analysis of these systems, whose deterministic behavior is
unpredictable due to the presence of sensitive dependence on initial
conditions. Newton's method for solving systems of equations is one of
the main algorithms of numerical analysis. A better understanding of its
properties and those of variants can make the solution of problems of
scientific and engineering origin more efficient.